Third International Conference of the Council on Tall Buildings and Urban Habitat

This project is to conduct an international conference in Chicago in January 1986 on the subject of tall buildings and the urban habitat. The objective of the conference is to discuss the new developments and concepts in the design of buildings and their influence on the urban environment. Participants will be drawn from many disciplines, such as: planners, architects, engineers, designers, and construction managers who are the leaders in their field and in their country. The proceedings will be of great benefit to all the professions involved in the construction of buildings.